National Ice Core Curatorial Facility

This award supports the establishment of a National Ice Core Curatorial Facility to be located on the grounds of the Denver Federal Center, operated as an extension of the U.S. Geological Survey's Core Research Center (CRC) by the University of Colorado at Boulder and the U.S. Geological Survey. The Facility will provide 50,600 cubic feet of safeguarded core storage at -35 degree celsius. Refrigerated examination room, holding, staging and changing areas will be provided as well as instruments and equipment for routine core examination and processing. Additional facilities will be available at the Core Research Center. The Institute of Arctic and Alpine Research, University of Colorado will be responsible for the Facility, and will provide direction and communication with the scientific community. The University will also provide a background of relevant research and educational activities that will enhance the Facility and provide new scientific opportunities. The USGS will provide the physical facilities and staff, operate and maintain the Facility. The USGS will also act in a curatorial capacity, providing for the processing, cataloging, and distribution of samples- an area in which CRC personnel have over forty man-years of experience.